Acquisition of Gallium Focused Ion Beam Instrumentation

9512474 Hull A focused ion beam (FIB) instrument will be acquired for research in materials science and biological applications. This instrument produces high current density, highly collimated beams of positive gallium ions at energies in the range between 5 and 30 kiloelectron volts. Such beams can be used to sputter, pattern, or deposit on scales of less than 100 nanometers. These processes can be viewed dynamically via imaging with secondary electrons or ions. Specific applications include: (1) micromachining of transmission electron microscopy samples for electronic device degradation studies; (2) nanoscale imaging of dopant distribution in semiconductors; (3) mesoscopic lithography for a wide range of low power and high frequency semiconductor electronic devices and metal/superconductor heterostructures and tunneling devices; (4) tomographic imaging of intracellular structure in biological materials. %%% This research incorporates elements which define broad new applications for focused ion beam instrumentation such as dopant mapping and tomographic imaging of biological materials. These novel applications can potentially encourage and accelerate the development of the technique. In addition, the direct visualization of sputtering and deposition processes can enhance teaching methods in courses relating to electronic materials processing and microelectronic device manufacturing. ***